Postdoctoral Fellowship: MSPRF: Growth in Corners of Linear Groups

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Joseph Slote is “Growth in Corners of Linear Groups”. The host institution for the fellowship is the University of Washington and the sponsoring scientist is Jerry Li.